CSR: Small: Adaptively Applying Data-Driven Execution Mode to Remove I/O Bottleneck for Data-Intensive Computing

The increasingly common multi-core/many-core CPU architectures
are effective for accelerating programsâ?? execution only when
sufficient parallelism is maintained. For data-intensive
programs the increased parallelism can severely compromise I/O
efficiency: when a sequential program is parallelized, not only
computations, but also the I/O operations associated with them, can
be distributed among multiple processes. Because the execution
order of the processes is usually determined by the scheduler at
runtime, the relative progress of processes is nondeterministic
and the order in which the processes issue their I/O requests is
accordingly nondeterministic. It is this I/O nondeterminism that
can substantially compromise I/O efficiency, and thus program
performance, by negating the advantages of parallel execution.

To address this problem the PI proposes a facility built either
in the operating system kernel or in the runtime to streamline
the service of I/O requests from different processes of a
parallel program. The major distinction from conventional
techniques for improving I/O performance is in the coordination
of I/O request issuance, via I/O-aware process scheduling, to
improve the locality of these requests for I/O-intensive
multithreaded and MPI programs.

If successful, the proposed research would introduce a disruptive
technique for data-centric computing to effectively relieve the
I/O bottleneck. This project also provides abundant research
training opportunities for students, especially under-represented
minority students in the southeast Michigan area, to help relieve
the shortage of IT professionals with expertise in parallel
computing and storage systems.